Phase Transitions and Volume and Energy Band Gap Variation in the Multimegabar Regime

Techniques for x-ray diffraction studies (using Cornell High Energy Synchroton Service) and optical studies which will extend the static pressure range higher than the 560 GPa attained will be developed. To do this requires further miniaturization of diamond tips, of sample size and of x-ray apertures and optical beam diameters. The crystal structure of oxygen and sulfur will be found ımaterials which have previously been metallized (they have 60% reflectivity at the diamond sample interface at high pressure)! since this should induce theorists to work on these materials. Superconductive bahavior will be looked for in them. Hydrogen, nitrogen (including high temperature) and LiH will be pressurized to pressures in excess of 4 Mbars and higher with the intent of reaching meatllization. The metallization of alkali hydrides as an analogous series with hydrogen hydride as the highest member of the series will be studied. %%% Ultrapressures cause enormous changes in solids. Solid xenon has its volume decreased by 72% at 1.5 Mbars while silicon has its volume decreased by 34% at 2.5 Mbars (the pressure at the earth's core is 3.6 Mbars and at the deepest spot in the ocean only 1kbar). These enormous changes cause changes in crystal structure, and changes in electronic structure resulting in important changes in physical properties. Theorists, using quantum mechanics with approximatims (necessary to make the problem soluble) attempt to calculate these structural changes. Results provide an exacting test of their theories and set the stage for doing computer based solid state physics. Interest is also in developing new materials with possible exotic properties. It has been predicted that hydrogen will become metallic at high pressure and that it will be a high temperature superconductor. Metallic xenon and metallic oxygen have been made and work is being done to make metallic hydrogen to see if it indeed is a high temperature superconductor. High pressure is viewed as a tool for making and processing new materials with unusual properties.